Postdoctoral Research Fellowships in Chemistry

Dr. Christopher M. Hadad has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Hadad's doctoral degree was from Yale with Professor Kenneth Wiberg. Dr. Hadad intends to continue his research with Professor Charles DePuy at the University of Colorado. He will learn the techniques of studying reactions by the flowing afterglow method and strengthen his understanding of theoretical as well as experimental approaches to the elucidation of gas phase mechanistic studies. This will help him in his career goal of studying how condensed media affects chemical reaction dynamics. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.'s and attract them into meaningful careers in contemporary chemical research and teaching.